A Systems Approach to Ultra-Clean and Ultra-Efficient Internal Combustion Engines

Gasoline engines from a mechanical engineering point-of-view are torque producers for
transportation and power generating systems. Traditionally, mechanical engineers investigate fueling
control solutions that maintain the engine exhaust AFR at 14.1 and avoid engine misfires. From a
chemical engineering view point, gasoline engines are emissions producers that feed chemical
reactors (exhaust aftertreatment systems). This research project seeks a revolutionary approach to
engine fueling controller design and exhaust aftertreatment design for lean burn operations, and the
optimal integration of the engine with the exhaust aftertreatment system through nonlinear control.
Collectively these efforts will produce maximal fuel economy while ensuring zero tailpipe emissions.
These step advancements in transportation system powertrains will be the results of a close
collaboration between mechanical engineers and chemical engineers. Moreover, this research will
advance an interdisciplinary research project facilitated through a cross-disciplinary education. This
new graduate education model builds on cross-training by having ME students take ChemE course
and ChemE students taking ME courses. Our approach has mechanical engineering students taking
ChemE reaction engineering and catalysis courses so that chemical reactions producing exotherms
can be integrated into their heat transfer knowledge base. The chemical engineers will take MECE
systems modeling (lumped parameter modeling), robust controls and systems diagnostics.
Ultimately, the 21st century ultra-clean and ultra-efficient power transformation engineer will be
produced. The national impact of these engineers will lead to a decrease in dependence on foreign
oil and will have a positive impact on the environment. It is anticipated that this work will lead to
ultra-efficient next generation engines that will be environmentally friendly since the combustion
event will be used to clean the air.